Continuous Path Planning in Robotics Systems with Uncertainty

The proposed work will develop algorithms for motion planning of three-dimensional manipulators operating amidst unknown obstacles of arbitrary shape. The robot arms considered here are assumed to have a contact-sensitive sensory skin such as nearly all animals possess. (Such arms are being developed in a parallel project at Yale.) Prior studies of the two-dimensional case produced fast algorithms guaranteed to converge to a global position goal. This work will extend the simulation and mathematical analyses to three-dimensional arms of increasing complexity.